Presidential Young Investigator: New Methods of Stereochemical Control

Dr. Robert Hanson is being given the Presidential Young Investigator Award from the Synthetic Organic Chemistry Program to support his research into the development of stereochemical control from both experimental and theoretical viewpoints. This work will provide the information required to synthesize the new generation of molecules needed by agriculture and industry. Dr. Hanson is the first chemistry Presidential Young Investigator from an undergraduate institution (RUI). The research will include: (1) the development of highly stereoselectice reagents for synthesis, (2) the development of directly predictive as well as descriptive measures of "reagent selectivity", "substrate selectivity", and "reagent control", (3) the development of a rational approach to the design of reagents for the kinetic resolution of enantiomers, (4) the extension of "multiplicative" reaction models to situations involving more than two chiral components, (5) the development and use of enantiomerically enriched reagents to impart regioselectivity in the reactions of enantiomerically pure substrates, and (6) the development of conformational analogues of stereoselective reactions.